Modern Instrumentation for Project-Based Undergraduate Chemistry Laboratories

For the optimum operation of a new project-based sophomore-junior chemistry laboratory program at Milliken University, the recent acquisition of a diode-array spectrometer, a gas chromatograph with integrator, and two microcomputers provides students with the speed and versatility needed to make fast, accurate measurements and to process data efficiently. In these laboratory activities, which have been transformed into separate courses with an emphasis on experiments rather than exercises, the objective is for students to develop maximum independence so that the difficulty often encountered in making the transition into industrial careers or graduate training can be minimized.